Differential Equation Weekends

This award provides support for meetings, held at the University of Memphis and at Mississippi State University, on current research topics in differential equations. The meetings are part of the successful, well-attended regional Differential Equations Weekends series. The conferences encourage and financially support participation by students and recent Ph.D. recipients.

The meetings include plenary lectures on topics of current research interest but strongly encourage lectures by students and recent Ph.D. recipients. The conferences bring together workers in a variety of different areas of research in differential equations, with emphasis on providing opportunities for new researchers to present their work. The conferences will be especially beneficial to young researchers, including graduate students and postdocs.

Conference web site: http://www.msci.memphis.edu/confsymp.html